Controlled Interactions Within and Between Rydberg Atoms

The proposed experiments focus on the observation and control of interactions
between, and within, highly-excited Rydberg atoms. The project represents one
component of a broader effort within the PI's group in which lasers and coherent fields
are used to manipulate quantum dynamics in atomic and molecular systems. This
general theme is shared by many in atomic, molecular and optical physics research,
with potential applications to coherent control and surveillance of chemical reactions,
quantum information processing, and direct simulation of model condensed matter
systems. The proposed work will be performed over a 4 year period in two different
laser facilities at the University of Virginia. The first is the PI's 1,600 square foot
laboratory in the Physics Department, and the second is a shared 2,500 square foot
multi-disciplinary laser laboratory in the Chemistry Department. The experiments will
utilize laser, vacuum, atomic beam, atom trap, and detection equipment currently in the
laboratories.